Genetic Control of Cerebellar Zonal Patterning

9309611 Oberdick The cerebellum is a brain region that is critical for the coordination of movement. Much is known about the structure and function of the cerebellum. One striking characteristic of the cerebellum is that it is divided into a series of modules. Each module has a unique set of input and output connections with other brain regions. Each module appears to subserve a specific movement function for a discrete part of the body. This project will seek to understand how the different modules become delineated during development. Specific genes will be identified that are responsible for this process in the cerebellum. The results of this study will offer new insights into how regional differences develop in the brain. *** tspool NETWORK ERROR windows devices ports intl The %1 on %2 (Local) is %3 %1 current on local %3 (%2) %1 waiting on local %3 (%2) The %1 on %4 (%2) is %3"Sending %1 to queue %4 via %3 (%2)#%1 waiting for queue %4 via %3 (%2) window A po9309611 Oberdick The cerebellum is a brain region that is critical for the coordination of movement. Much is known about the n g l n ! ! F n n 8 Times New Roman Symbol & Arial " Univers (WN) " h % % E E x 8 Steve McLoon, IBN William Proctor, IBN